Research Initiation: Stereo Vision, Depth Focus, and the Active Reconstruction of Depth

This Research Initiation Award will fund development of a stereo vision system that gains additional depth information from image blur. Active camera control will be exploited, with blur measurements taken during focal search used to estimate depth throught the scene. Approximate depth knowledge can then be used to align the stereo cameras and select sharp scene edges for precise range measurement.